Improving Cybersecurity Research in the United States

This project will examine the framework for supporting cybersecurity research. It will consider where and how important topics are covered (building on past work, which has identified many important and often enduring topics), the distribution of research effort among actors (with emphasis on universities, in part to address the link between the conduct of researchers and the education and training of cyber security experts to ensure that there are enough researchers to perform the needed work), and the distribution and range of support programs among federal funding organizations. The project will examine issues regarding and options for improving coordination and efficacy in the national pursuit of cybersecurity research. A brief report with recommendations will be developed.